SGER: Creating Digital Archives of 3D Artworks

Proposal : IIS-0087158
Institution: Stanford University
PI: Marc Levoy
Title: Creating Digital Archives of 3D Artwork

Recent improvements in laser rangefinder technology, together with
algorithms for combining multiple range and color images, allows
accurate digitization of the external shape and surface
characteristics of many physical objects. This capability makes it
possible for the first time to digitize and archive substantial
bodies of three-dimensional artistic and cultural artifacts, such as
statues, buildings, and archeological remains. Although the
methodologies needed to create and manage digital archives of
two-dimensional artifacts have matured substantially in the last ten
years, the jump from two to three dimensions poses new problems.
These are problems of both scale and substance, and they touch on
every aspect of digital archiving: storage, indexing, searching,
distribution, viewing, and piracy protection. This pilot project,
will focus on the following subproblems of this new domain:

(1) cataloguing 3D artworks using techniques from image-based rendering,
(2) searching catalogues (and the Internet) for 3D models or rendered views
(3) protecting 3D archives against piracy using robust 3D digital watermarking,
(4) efficient streaming of 3D models over networks of limited bandwidth, and
(5) real-time display of large 3D models on low-cost PCs.

As test data, a 250 gigabyte archive of the sculptures of
Michelangelo and the fragments of the Forma Urbis Romae, a giant
marble map of ancient Rome will be used. The data for this archive
was generated during a year-long digitization effort called the
Digital Michelangelo Project.